Virtual Laboratories to Support Software Development Teams

9452594 Nosek Senior level multi-semester team software development projects of "real-world" problems provide inestimable rich learning experiences. However, the usual problems that student teams encounter in finding opportunities to meet are exacerbated for poor and middle class urban students who commute, work to pay for educational expenses, and/or are physically challenged. Current computer-based laboratories available for student software development teams are inadequate in several major ways: limited availability; restrictions on student access to client/server functions to prevent inadvertent student-caused failure of the common laboratory; can't support team efforts at off-campus work sites; team discussion interferes with, or are inhibited by, other students using the same common laboratory. "Virtual laboratories" using leading edge technologies are proposed to provide flexible, portable LANs with effective collaborative software to provide any time/any place laboratory support for software development teams. This approach will fundamentally alter the way team software development is taught.